Travel Support for the Interdisciplinary Conference on Electrical, Electronics & Computer Engineering Education in the Third Millennium. Held in Davos,Switzerland, Sept. 10-15,2000

The Interdisciplinary Conference on Electrical, Electronics & Computer Engineering Education in the Third Millennium (ICEECEE) will be held September 10-15, 2000 in Davos, Switzerland. ICEECEE is sponsored by the United Engineering Foundation and the Institute of Electrical and Electronics Engineers (IEEE). The aim of this conference is to create an opportunity for worldwide cooperation in the goals, curricula and methods of Engineering Education.

The ICEECEE will fund travel expenses and registration fee for young investigators and educators